Oceanographic Instrumentation

The oceanographic instrumentation program supports requests to acquire instrumentation for the collection, processing and analysis of oceanographic data. This proposal from the University of Oregon requests funding for equipment that will be used to support NSF- funded research cruises aboard the R/V WECOMA, a 177 foot vessel that is owned by NSF and operated by the University.